Research Experience for Undergraduates at Montana State University's Center for Biofilm Engineering

This award provides funding to Montana State University for a three year, REU Site at the Center for Biofilm Engineering, under the direction of Dr. Anne Camper. This twelve-week summer program will involve eight students annually in individual biofilm research projects. In addition, the participants will receive training in technical presentations and writing, give oral presentations throughout the summer, write a final research report, and learn about ethics in research through seminars and industry field trips.
.